RDE-FRI: Innovations in STEM Education for Blind Undergraduates Using Digital Pen-Based Audio/Tactile Graphics

RDE-FRI: Innovations in STEM Education for Blind Undergraduates Using Digital Pen-Based Audio/Tactile Graphics is a 36-month, $300,000 dollar collaborative award to the Smith-Kettlewell Eye Research Foundation and Vanderbilt University that is funded by the Research in Disabilities Education (RDE) program's Focused Research Initiatives (FRI) track. The primary goal of the project is to develop, evaluate, and disseminate a low-cost, portable, easy-to-use digital pen technology that enables blind undergraduate students and educational support personnel (ESP) to create, explore, and understand the diagrams and figures common to the STEM curriculum using touch and sound. The research team is conducting a three (3) phase research project to examine the benefits of deploying a digital Pen Audio/Tactile graphics (dPATg) approach which includes two-handed tactile exploration, ultrafine selection resolution, portability, and the ease of creating ad hoc content by students and ESP using the Sewell raised line drawing kit (SRLDK) and the SpotDotView Braille Embosser. Following an initial phase of observing students using STEM diagrams and figures in the classroom, the second phase includes a series of single-subject designed studies to investigate the dPATg approach. The third phase employs a quasi-experimental design where student performance is measured as a result of one (1) of three (3) treatment conditions: Use of dPATg systems, use of conventional audio/tactile systems, and no advanced technology use. This project builds on the prior success of the PI's current and previous work on the use of technology for the blind and visually impaired that was funded by the US Education Department's National Institute on Disability and Rehabilitation Research (H133E060001; H133A060056; H133S060103).

This highly experienced team, which is lead by a research psychologist who is blind and by an expert in instructional technology, benefits from partnerships with the University of California at Berkeley (UCB) and San Francisco State University (SFSU) where approximately 40 blind undergraduate students are being observed and recruited for study participation. Additional subjects are recruited from community colleges in the San Francisco Bay region and from other California State Universities. The project also benefits from an industry partnership with LiveScribe, Inc., a company with expertise in the development and manufacturing of digital pen technology.

This project addresses three (3) of the RDE-FRI track goals: To encourage research and development of specific but utilitarian assistive technologies that will help persons with disabilities pursue careers in STEM; to build tools for students with disabilities that can quickly be developed and effectively deployed in the educational environment; and to investigate effective instructional methods and practices for people with disabilities in STEM. There is a formative and summative project evaluation plan being conducted by an external evaluator, Donald Stenhoff, from the University of Kentucky. Additional formative project input is provided by a team of expert internal and external advisors that includes Anita Aaron from the San Francisco Lighthouse for the Blind; Dmitri Belser from the Center for Accessible Technology; John Brabyn from the Rehabilitation Engineering Research Center for Blindness and Low Vision; Gene Chelberg from SFSU; James Gammon from UCB; and Ted Hasselbring from Vanderbilt University. There is also a dissemination plan which includes a website for distributing project information, publishing findings in peer-reviewed professional journals, presenting project materials and results at educational technology conferences, and facilitating the transfer of digital pen technology to special education and educational technology fields.